VLF Imaging of Lightning-Induced Disturbances of the Lower Ionosphere

A three year program of very low frequency (VLF) observations at multiple sites across United States is proposed for the purpose of 'imaging' ionospheric disturbances that occur in association with lightning discharges. The first year experiment involves measurement of amplitude and phase of VLF transmitter signals at Puerto Rico, Huntsville, College Park, Houston and Stanford, providing a grid of great circle paths over the continent. The location of transient ionospheric disturbancesare determined by means of simultaneous occurrences on crossing and collinear VLF paths. The lightning-induced ionospheric disturbance events are recognized on the basis of their characteristic signatures and occur due to (i) lightning-induced precipitation of energetic particles from the radiation belts, and (ii) direct upward coupling of lightning radiation to the lower ionosphere producing intense heating and ionization. The second year program involves measurements at five closely spaced sites in the vicinity of Huntsville, Alabama for the purpose of tomographic imaging on a tight (but irregular) grid of paths. The proposed measurement program synergistically benefits from Stanford observations at Palmer, Antarctica and a recently developed three dimensional model of VLF propagation in the earth-ionospherewaveguide. The third year observation program emphasizes measurement of event occurence in the south western and south-cenbtral United States region of known high thunderstorm activity.